Travel: NSF Student Travel Grant for 2026 IEEE Annual Computer Security Applications Conference (IEEE ACSAC 2026)

ACSAC is a top-tier academic security conference that averages about 250–300 highly skilled security professionals and student attendees per year. The conference regularly brings together the foremost minds in academia, government, and industry to address the most pressing problems in applied computer security, as well as discuss seminal works in computer security. As cybersecurity is central to public services, critical infrastructure, economic activity, personal privacy, and national defense, this travel grant supports the workforce development for cybersecurity.

This project supports undergraduate and graduate students to attend the in-person IEEE ACSAC 2026 conference and related workshops in Los Angeles, California, from December 7 to 11, 2026. By reducing registration and travel barriers, the project helps students present research, learn from peer reviewed work, engage with practitioner case studies and research artifacts, build professional networks, and prepare for cybersecurity careers that serve national needs.